Combined Research-Curriculum Development on Maintenance and Reliability Engineering

EEC-9700654 Shannon Abstract This award provides funding to the University of Tennessee, Knoxville (UTK), under the direction of Dr. Thomas Shannon, for the support of a Combined Research-Curriculum Development project entitled, "Combined Research-Curriculum Development on Maintenance and Reliability Engineering." This project's goals are to focus on the incorporation of the latest developments in Maintenance and Reliability Engineering (MRE) into a well-structured academic program. New courses to be developed will strengthen the MRE certification program that involves course work, industrial experience and research. These courses are: 1. Introduction to maintenance engineering; 2. Maintenance planning, management and performance evaluation; 3. Machinery condition monitoring and diagnosis; and 4) Reliability and life prediction technology. The CRCD program will be managed by the Maintenance and Reliability Center (MRC), which was formed by the UTK Colleges of Engineering and Business Administration to broaden the MRE academic and research capability.